Major Equipment Request for a Subsurface Interface Radar (SIR) System

9219777 Schultz This award provides 62% of the funds required for the acquisition of a portable ground-penetrating radar (GPR) system that will be operated in field research and teaching projects by members of the Department of Geological Sciences at Brown University. Brown University is committed to providing the remaining funds necessary for the purchase of the equipment. The GPR system is capable of producing images of the shallow subsurface (down to depths of several tens of meters) with image resolution of several tens of centimeters in the vertical and horizontal direction. The GPR system will be used initially by the Principal Investigator to image the stratigraphy under the Rio Cuarto crater field in Argentina which was produced by the low- angle "grazing" impact of a meteorite. The GPR system will also be used in the Department's courses in geophysics. ***